Research in Engineering Design: Computer-Based Models and Representations

This proposal is for support of five separate but inter- related projects. The projects are: (1) Research on the iterative redesign model applied to parametric design of components: Modifying and extending an existing system to include the Taguchi philosophy of parametric design, and to include tolerance selection; (2) research on the iterative respecification model applied to parametric design of assemblies: Developing a first domain-independent version of the model, including tolerance selection; (3) research on features and designing with features for components: Extension of the current architecture and representation to deal with the more complexity, including tolerances, curved surfaces, feature combinations, user-defined features, and (possibly) functional intent; (4) research on a feature-based computer environment for conceptual design of mechanical assemblies: Extension of the current multiple level of abstraction representation to include multiple functional viewpoints; (5) research on extending the iterative redesign model to configuration and to conceptual design: Using features and concepts to assist evaluation and redesign of configuration and embodiments.